Universo, Hispanic Heritage Month Programs, and Universo and StarDate for the Classroom

9705340 Barnes The University of Texas at Austin requests $399,341 to expand the current Universo translations of StarDate into Spanish to more culturally relevant programs for a growing Hispanic audience. Plans include creation of longer programs with a different format for Hispanic Heritage Month for 1998-2000 and creation of complimentary collateral materials for distribution to 200 Spanish- language radio stations. Programs will also be distributed to 1,650 classrooms. A teacher's guide for using Universo in the classroom will be developed in English with activities available in both English and Spanish. A parent's guide to Universo/StarDate will also be produced to encourage parents to get involved in skywatching activities.